Hybrid Structural Health Monitoring Via Integrated Sensing of Global Vibration and Local Infrared Imaging

Abstract
0511046
Henry Yang, Univ. Santa Barbara

This project aims at the development of a hybrid structural health monitoring and management of civil and mechanical structures through Integrated Sensing module for Monitoring, Decision-Making, Model Management, and Control.

Such modules provide the ability of assessing the health condition of structures at both global and local levels, and offers improved performance over traditional methods focused on either level. One objective is to develop reliable global damage detection and identification methods. The structure will be modeled as integration of several subsystems. By monitoring the change in the dynamic behavior within each subsystem, the region of damage can be located at the subsystem level. Another objective involves the development of local damage detection methods. The novel sensing technique using ultrasonic infrared imaging will be adopted and continuously developed in this study.

The final objective is to propose that these two methods, global and local, interact in a mutually complimentary manner during real time monitoring process to assure optimal monitoring and management results, including the determination of exact location and characterization of damage and accounting for the effects from unknown environmental conditions.